Presidential Young Investigators Award

It is generally believed that increasing the lattice mismatch beyond the point of pseudomorphic growth (thus creating dislocations in the structure) renders the material useless for electronic devices. I am currently investigating the possibility that this belief may not be correct and that in some systems, it may be greatly advantageous to increase the lattice-mismatch past the point of pseudomorphic growth. Currently, I am collaborating with two other Professors one from UW Physics, x-ray diffraction and the other from ASU, Physics, electron microscopy on a long term project to theoretically and experimentally investigate strain relaxation in near- and over-critical thickness InGaAs quantum wells and thin films, as well as in naturally and artificially-graded quantum wells and thin films.